REG: Network Analyzer for Power System Impedance Measurements

9411567 Kelley The Department of Electrical and Computer Engineering at North Carolina State University will purchase a Hewlett-Packard 3577B Network Analyzer and an Apple Quadra 950 Computer. The new equipment will support ongoing power quality and efficiency research funded by the Electric Power Research Center of North Carolina State University. Increasingly, the line-current and line-voltage distortion produced by nonlinear loads reduces power quality and creates unexpected high-frequency loss. One project the network analyzer will measure line impedance to find the impact of line-current distortion on line-voltage distortion. In a second project the network analyzer will measure transformer and motor impedance to find excess loss due to voltage and current distortion. The impedance measurements provide a better understanding of power system operation with nonlinear loads and are essential to maintain power quality and efficiency in the presence of current and voltage distortion. ***